The Effects of Underemployment in Rural America

The primary objective of the project is to develop a competitive research proposal on "The Social Psychological Consequences of Underemployment." Support of the project will assist a well trained black sociologist to improve her research capability and to complete the planning and development of a regular MRI proposal. The planning activities, if successful, will significantly enhance the potential of the investigator to compete for MRI and other research support.